Center for Advanced Air Conditioning and Refrigeration Technology Planning Conference

The area of freezing and environmental cooling is being impacted by the problem of stratospheric ozone depletion as a result of reliance on fluorocarbons as the principal refrigerant. In addition increases in the cost of energy require improvements in the components (heat exchangers, compressors) used in the air-conditioning and refrigeration equipment if US industry is to remain competitive in this area. This award is for funding an Industry/University Planning meeting to study the feasibility and viability of an Industry/University Cooperative Research Center on Advanced Air-conditioning and Refrigeration Technology to be operated by University of Illinois at Urbana-Champaign. A prospectus for the Center's research and operations has been prepared which will provide a basis for discussion and comment at the planning meeting to be held in April 1989 at Urbana, Illinois. The principal investigator and his colleagues are recognized authorities in their fields and have the necessary industrial interactions to run this meeting. This project has been coordinated with Dr. William Grosshandler, PD for Thermal Systems Engineering in the CBTE Division. This Program Manager recommends that the University of Illinois be awarded a grant of $13,987 for one year for an Industry Planning meeting for an I/UCR Center on Advanced Air Conditioning and Refrigeration Technology. Future funding will be based on a new proposal.